Acquisition of a Thermal Ionization Mass Spectrometer

This award provides one-third of the funding needed to acquire a thermal ionization mass spectrometer that will be installed and operated in the Department of Earth and Planetary Sciences at Washington University in St. Louis. Washington University is committed to providing the remaining funds needed. Acquisition of a mass spectrometer will allow terrestrial isotopic and geochronological studies to be conducted by the Principal Investigator and colleagues in the Earth and Planetary Sciences Department. Primary applications will be (1) uranium- lead zircon dating and neodymium and lead isotopic studies of orogenic belts such as the Archean Slave Province, the Proterozoic Wopmay Orogen, and the Proterozoic of the southwestern U.S., (2) Isotopic studies of continental rift magmatism in Baikal(USSR) and Rio Grande (US) rifts.